1993 Aspen Winter Elementary Particle Physics Conference

This grant is for a conference held yearly at the Aspen Center since 1985. This grant speaks to the one week, in January, when the subject will be "Particle Physics from Supercolliders to the Planck Scale". Encompassed within that broad range will be sessions on high energy physics at present and future colliders, and recent formal developments in superstring theory and related fields. The participants will be exposed to topics certain to expand beyond their usual set of professional activities. This grant's goal is to "cross-fertilize" the formal and phenomenological communities.